TC: Usage Control Models, Architectures and Mechanisms Based on Integrating Authorizations, Obligations and Conditions

Abstract

This project is developing a new approach called usage control to protection
of information and system resources in cyberspace. In addition to the
traditional concept of authorization (whereby access is authorized by
explicit or implicit permissions and rights), usage control includes
obligations (conditions which must be met before and during access) and
conditions (environmental and system conditions). Usage control further
recognizes continuity of access enforcement so the decision to allow access
is not only made prior to access, but also while the access is underway.
Finally, usage control recognizes the need for mutability whereby
appropriate attributes need to be updated as access proceeds. This project
will develop, refine and formalize models for usage control. It will
consider applications from healthcare, digital rights management and
electronic commerce domains. Concurrently it will investigate architectures
for enforcing usage control. This research seeks to give clarity and
intellectual cohesion to a variety of proposals to enhance the classic
access matrix model. This intellectual foundation will in turn foster
additional basic and applied research. The results of this research are being
taught in existing GMU courses as they emerge. These results will influence
and shape the next generation of access control systems.